Load Sharing Among Hindlimb Agonists

9311398 Gregor The muscles, joints, tendons, and bones that form the joints of weight-bearing vertebrate limbs comprise an exquisite biological solution to a staggering difficult mechanical problem. Not only do these joints perform essential functions such as locomotion, climbing and leaping, they do it with grace and economy of motion. No artifical system comes even close to solving these problems in an elegant, functional and esthetically pleasing way. This new NSF award to an expert in kinesthesiology (the science of biological motion) will allow him to study an animal model system of multijoint control using sophisticated force transducers and high speed cinematography. The questions he will address include (1) the contributions of each bi-articular muscle to the generalized muscle moment at the knee and ankle joints; and (2) the power output of each muscle-tendon unit and their contriubtion to the total joint power. The results will provide data that can be used to model general solutions to these problems and will be of interest to robotics designers, rehabilitation specialists and sports scientists. ***